NSF East Asia and Pacific Summer Institute for FY 2012 Taiwan

This action funds Angelina Altshuler of University of California, San Diego (UCSD) to conduct a research project, entitled "Investigating the response of the blood vessel surface to reduced blood flow," during the summer of 2012 at National Health Research Institutes in Zhunan, Miaoli County, Taiwan. The host scientist is Dr. Jeng-Jiann Chiu.

The Intellectual Merit of the research project is to understand the response of the endothelial glycocalyx to blood flow reduction in the rat aorta and consequent endothelial dysfunction. The research uses basic principles in fluid mechanics and investigates how these principles apply to blood vessels.

Broader Impacts of an EAPSI fellowship include providing the Fellow a first-hand research experience outside the U.S.; an introduction to the science, science policy, and scientific infrastructure of the respective location; and an orientation to the society, culture and language. These activities meet the NSF goal to educate for international collaborations early in the career of its scientists, engineers, and educators, thus ensuring a globally aware U.S. scientific workforce.